Collaborative Proposal: A Geometric Method for Image Registration

A new computational method for image registration is formulated.
Registration refers to the task of aligning a pair of images obtained
by CT (computed tomography), MR (magnetic resonance), ultra-sound,
and other techniques, so that they can be compared both qualitatively
and quantitatively. This is an important problem with applications
ranging from remote sensing to medicine. In medicine, imaging
techniques and analysis have become an important, non-invasive tool
for diagnosis and for surgical and radiation treatment planning.
Despite advances in this area of research, the challenges posed by
registration for three-dimensional images remains an open problem. A
new mathematical approach is developed that optimizes any chosen
similarity measure of the images, subject to the constraint of a set
of differential equations that can generate any differentiable and
invertible transformation.

The main intellectual merit of the project is that it significantly
enhances our understanding of imagery and shapes and also the
accuracy and efficiency of image registration techniques. The main
features of the new method are as follows.
1. Similarity measures used to compare images are directly optimized.
2. The method has a landmark matching capacity for large deformations
between images.
3. The method is founded on solid mathematical theory; in particular,
the admissible space of transformations is the set of all
differentiable and invertible transformations.
4. The project is carried out with the use of the software Insight
Tool Kit developed by the National Institutes of Health; that
software provides an excellent resource for the research activity.
The broader impacts of the proposed activity are as follows.
1. Undergraduate and graduate students are educated and trained to
apply powerful mathematical techniques to medical and other image
processing problems.
2. The new method will impact other areas of the computational
sciences. Results are to be presented at conferences and published in
scientific journals and through the mass media directed at scientists
and the general population as well.
3. New partnerships between medical doctors, biomedical engineers,
and mathematicians are established, helping create a favorable
environment for further research aimed at improving the health of our
citizens.